MRI: Acquisition of Instrumentation for an Experimental Radio Facility in Support of Wireless Digital Communications Research

EIA-9977387
Costello, Daniel J.
Collins, Oliver
University of Notre Dame

MRI: Acquisition of Instrumentation for an Experimental Radio Facility in Support of Wireless Digital Communications Research

A team of researchers proposes to construct a facility to provide two-way digital communications capabilities which will consists of two base stations, a number of mobile units and all test equipment necessary to effect narrowband transmission over a geographical area of several square miles. This facility will provide a resource that is rare in academia - an actual operational testbed for research into the algorithms and devices that make wireless digital communications possible. Some of the issues that will be investigated with this facility include: (i) the effectiveness of various error control schemes in a wireless environment, (ii) the design and testing of novel communication devices, circuits and architectures based on compound semiconductor technology, (iii) the ''synergy'' arising from use of spatial diversity in conjunction with coded modulation and interference mitigation, and (iv) experimental testing of proposed new techniques for anticipating the ''deep fades'' that afflict mobile communications.